Engineering Foundation Conference on "Emerging Separation Technologies for Metals II" to be held in Kona, Hawaii from June 16 - 21, 1996

CTS-9531784 Renato Bautista United Engineering Trustees, Inc. The conference on "Emerging Separation Technologies for Metals II" is organized by the Engineering Foundation. The meeting will take place in Kona, Hawaii from June 16-21, 1996, and focus on the separation of metals. Technical sessions will address both the fundamentals and engineering applications. Specific topics include thermodynamics, population balance and reaction engineering of metallurgical processes, multi-phase flow with multiple reactions, adsorption and extraction using multiple phases, electromagnetic filtration, metal extraction and environmental control. The conference will provide a forum for discussion of the emerging technologies in the separation of metals.